Oceanographic Instrumentation

This award is funded under the American Recovery and Reinvestment Act of 2009 (Public Law 111-5).

A request is made to fund additional and back-up instrumentation on the R/V Point Sur, a 135’ general purpose Regional research vessel. The vessel is operated by Moss Landing Marine Labs as part of the University-National Oceanographic Laboratory System research fleet. The request includes three items listed by priority:

1) Tucker trawl nets, frame, TDR
2) Beam Trawl nets

Broader Impacts: The acquisition, maintenance and operation of shared-use instrumentation allows NSF-funded researchers from any US university or lab access to working, calibrated instruments for their research, reducing the cost of that research, and expanding the base of potential researchers. The acquisition of improved, shared use, mid-water and benthic sampling devices will enhanse the R/V Pt. Sur's ability to support meaningful research.